Surface Chemical Effects on the Mechancial Properties of Solids: Combined Experimental and Large Scale Massively Parallel Atomic Level Simulations

9900278
Corcoran
The objective of this research project is to quantify the changes in nanoscale mechanical properties of metal surfaces under specific electrochemical environments where the surface energy, surface stress, chemical composition and excess surface charge can be precisely controlled. Specifically, in-situ nanoindentation measurements (hardness, elastic modulus, adhesion and indentation creep) will be performed on metallic surfaces as a function of (1) systematically varying the surface stress through electrochemical control of the surface charge, (2) varying the surface energy and stress through the electrochemical deposition of strained metal monolayers as well as the growth of surface oxides, and (3) varying the adhesion between the surface and the surface probe through the use of different probe-sample combinations. These results will lead to a better understanding of the basic mechanisms by which surface chemistry can alter the nanomechanical properties of surfaces. These results are expected to have implications in lubricant development and a basic understanding of friction processes.
***